Spectroscopic Observations of Active Galactic Nuclei

Spectroscopic observations of a number of Seyfert type 1 galaxies will be continued to determine the temporal behavior of the broad emission lines. It has been shown that the variability of the broad-lines in the spectra reveals important information about the line-emitting regions and the central energy sources that cannot be obtained in any other way. The primary purpose of the research is to determine the size and kinematics of the broad-line emitting regions in active galactic nuclei. Observations will be made with the new Ohio State University Change-Coupled Device (CCD) Spectrograph on the Perkins 1.8-m telescope at Lowell Observatory in Arizona. Some of these will be supplemented with ultraviolet observations made with the International Ultraviolet Explorer (IUE) satellite and possibly with the Space Telescope. These simultaneous optical and ultraviolet spectra will be used in comparisons with the predictions of current photoionization models.